STTR Phase I: Development and Commercialization of the SafeLight Family of Antimicrobial Materials for Combatting the COVID-19 Pandemic and Hospital Acquired Infections

The broader impact of this Small Business Technology Transfer (STTR) Phase I project is the development of new antimicrobial materials to reduce the spread of harmful bacteria and viruses in a variety of settings, particularly for self-disinfecting personal protection equipment against SARS-CoV-2 to combat the COVID-19 pandemic. While primarily intended for use in hospitals, these antimicrobial materials can also impact bio-defense; military facilities; food processing, packaging, and service industries; wastewater treatment facilities; daycare and long-term care facilities; and even personal households. Beyond the current pandemic, this technology can address hospital-acquired infections, which add an estimated $30-45 billion to health care costs every year; and the food service industry, where norovirus foodborne infections alone account for an economic loss of about $5.8 B annually in the United States. The proposed technology offers significant benefit for the current COVID-19 challenge and beyond.

The proposed project will develop light-activated surface-disinfecting materials based on photodynamic inactivation that generates singlet oxygen – a highly reactive yet environmentally benign species – to cause non-specific damage to microbes, rendering them inactive. The technical challenges are: 1) the development of chemical species capable of producing singlet oxygen upon exposure to light, but stable at the high temperatures of manufacturing processes, for which we will start with a known class of compounds; 2) the development of a method for the production and embedding of the newly-developed photoreactive compounds within relevant materials, particularly for the manufacture of personal protection equipment; and 3) evaluation of process efficacy for virucidal (against coronaviruses), antibacterial, antimycotic and sporicidal use.